SHF: Small: Collaborative Research: Mera: Memoized Ranged Systematic Software Analyses

As software pervades our society and lives, failures due to software
bugs become increasingly costly. Scalable approaches for
systematically checking software to find crucial bugs hold a key to
delivering higher quality software at a lower cost. Mera is a
methodology to scale model checking and symbolic execution which are two
powerful approaches for systematic software analysis and known to be
computationally expensive.

The project builds on two novel concepts: memoization, which allows
re-using computations performed across different checks to amortize
the cost of software analysis; and ranging, which allows distributing
the analysis into sub-problems of lesser complexity, which can be
solved separately and efficiently. Mera consists of three research
thrusts. First, the core memoization and ranging techniques for model
checking and symbolic execution are developed. Second, these
techniques are optimized in the context of different kinds of changes,
like the program code, expected properties, or analysis search-depth
parameters. Third, these techniques are adapted to effectively
utilize available resources for parallel computation using static and
dynamic strategies, such as work stealing. Mera will help improve
software quality and reliability thus holding the potential to provide
substantial economic benefits and to improve our quality of life.